ADVANCE Institutional Transformation Award: Comprehensive Institutional Intervention Strategy at Iowa State University

The goal of this project is to investigate the effectiveness of a multilevel participatory
action model to produce institutional transformation resulting in the full participation of
women faculty in science, technology, engineering and math fields in the university. This
model focuses on transforming departmental cultures (views, attitudes, norms and shared
beliefs), practices (what people say and do), and structures (physical and social
arrangements) as well as university policies through active participation of individuals at
all levels of the university.
Faculty in nine focal departments, chosen from the College of Engineering, the College
of Liberal Arts and Sciences and the College of Agriculture, will form the core
department-level working groups. A three-step process for departmental transformation
will include focus group and needs assessment meetings, training sessions tailored to
meet the unique needs of individual departments, and collaborative problem solving
sessions involving department faculty and ADVANCE program leaders. Developing and
implementing best practices for fostering cultures, practices and structures of inclusion
will be the goal at the department level. Department chairs and ADVANCE professors
will be key change agents. At the same time, the university-wide focus will be on
identification of subtle and overt impediments to equity and on policies that will help
dissolve these barriers. The Provost, Associate Provost, Deans, College Equity Advisors,
College Diversity Committees, Department Chairs, and ADVANCE professors will
develop and transform policies to increase the transparency of decision making,
institutionalize flexible career options, strengthen and expand mentoring efforts, increase
awareness of administration, faculty and staff regarding issues for women in STEM fields
and expand strategies specifically for advancement of women of color. Retreats and
networking meetings will facilitate interactions within the university, building a
community of women STEM faculty which will reduce isolation. A national conference,
hosted at Iowa State University, will bring leading experts to campus to share strategies
for change and provide a forum for dissemination of best practices, particularly in the
area of flexible faculty careers.
The Iowa State University ADVANCE Leadership Team has worked together for three
years on institutional issues related to the advancement of women faculty in STEM. Led
by the Associate Provost, the ADVANCE Leadership Team has hosted visits by national
experts on diversity, developed and revised key policies, and developed a network of
faculty and administrators who have participated in ISU STEM retreats for women.
Partnerships with existing ADVANCE Institutional Transformation grantees will
continue to be a key component of this on-going effort. The multidisciplinary
ADVANCE Leadership Team will be centrally involved in coordinating this project with
individual members serving in key roles as change agents throughout the university.
Data from focal departments, colleges and the university will be gathered and used to
evaluate the effectiveness of this approach in institutional transformation. Successful
strategies and actions will be generalized to be implemented in other departments and at
other universities. The results of this research, regarding the effectiveness of the
participatory action model as a driver for institutional change, will be shared with other
ADVANCE institutions and presented nationally in journals and at conferences.